Earthquake Injury Data Collection for 1999 Urban Earthquakes

CMS-0085314
Shoaf

This project is proposed in order to improve casualty estimation models for earthquakes by using data from the earthquakes which occurred in 1999 as additional datapoints for the refinement of the existing models. The investigators will collaborate with Taiwanese researchers to collect available injury and damage data. This data will be summarized, categorized into the standard categorization scheme (currently under development), and made available on the UCLA CPHDR website. Additional analysis of he Colombia data (and Greece and Turkey if available), including review of building damage and matching the damage data to the injury data are planned.